A Library of Mathematical Models of Biological Systems

The aim of this proposal is to facilitate the use of models of biological systems by developing a facility for locating and retrieving published models via the Internet. Models are used widely to study complex biological systems. They are used to represent hypotheses, (circulation in physiology), test theories (effect of enzyme concentration on reaction rate), make predictions (pharmacological response to a drug), design outcomes (calculate intake for optimal growth), and analyze data (calculate rate of substrate movement into cells). Models coalesce a large amount of information and form valuable tools in research and education, but their utility resides in being able to use and manipulate them interactively. Currently there is no centralized way to do this. This proposal describes the establishment of such a facility, called a library. Potential users of the library are researchers, educators, and students who would use the models to analyze data, evaluate theories, and design experiments. Models from the fields of metabolism, pharmacokinetics, endocrinology, immunology, physiology, toxicology, and biochemistry will be entered and will include linear and non-linear, compartmental models. The models will be collated, indexed, catalogued, and described mathematically in formats compatible with several (based on cost and demand) widely-used modeling software packages. Users will be able to access the library via the Internet and, using menus, search and locate models, view graphical and mathematical descriptions of the models, perform limited simulations in the library, or download models to use with their own modeling software. The library will be developed by an interdisciplinary team from Georgetown University and the University of Pennsylvania with expertise in the fields of informational science, library science, biology, modeling, computer science, and networking. A panel representing users in universities, indust ry, pharmaceutical companies and Government agencies will advise on the library structure, contents and dissemination. More than 300 models will be entered into the library over a 3 year period. In view of the resources committed to developing models of biological systems, access to tested, working versions of published models is necessary to allow them to be used for their intended purpose, i.e., to explore and test systems through simulation. This task will be accomplished by scientists in the biological and informational science fields through the development of a library of mathematical models.